Transmission Electron Microscopy of Semiconductor Thin Films

This study concentrates on high resolution electron microscopy(TEM) of compound semiconductor films for increased understanding of the relationships between atomic level structural characteristics, electrical and optical properties, and details of advanced materials synthesis and processing methods. Additionally, it is anticipated that these research efforts will provide a basis for relating observed microscopic features to subsequent optical and electronic device performance.